CAREER: Strain-tuning of unconventional and topological superconductors

Non-technical Abstract: Superconductivity is a state of matter with the remarkable property of conducting electricity without losses. Presently available superconducting materials are used for example in high-field magnets such as in medical MRI machines and for plasma confinement in fusion reactors. However, these materials only superconduct at low temperatures and require costly and inefficient liquid nitrogen or helium cooling. This fundamental challenge has severely limited widespread use of superconductors for quantum computing, power generation, transmission, storage, and ultrasensitive sensors. To achieve room temperature superconductivity, we need to develop a predictive, detailed, microscopic understanding of the mechanism of unconventional superconductivity. A special application of superconductors is quantum computing technology, which offers the prospect of performing calculations exponentially faster than conventional computers. One of the most promising platforms to build quantum computers are so-called Majorana zero modes, which exist in materials that combine superconductivity and topological properties. This research aims to reveal on one hand the fundamental interactions that lead to unconventional superconductivity and on the other hand allow for quantum control of topological superconductors. The project also includes efforts in recruitment, education and retention of the future quantum work force as well as engaging the broader public in our educational and research activities. Graduate and undergraduate students receive training within the specific research project as well as through new university courses. Education and recruitment of K12 school students is provided through two workshops. For the biggest possible impact, the research team leverages logistical support from various organizations at Penn State.

Technical Abstract: One of the most exciting topics in current condensed matter physics is the development of fault-tolerant quantum computing with qubits built from Majorana zero modes. Unconventional superconductors provide a different but related challenge as their electron pairing mechanism remains unresolved. A comprehensive understanding of both aspects is necessary for technological application: large electron-electron interactions provide the potential to create high Tc’s and exotic pairing symmetries may lead to new platforms for Majorana physics.
Tuning by non-thermal parameters such as pressure is a crucial tool in the study of superconductors. Fundamental interactions of lattice, charge and spin degrees of freedom often compete on similar time, length and energy scales. Electronic properties can hence be effectively tuned by external parameters. Quantum control over the superconducting and topological properties is technologically highly relevant and at the same time can uncover fundamental driving forces that lead to electron pairing. The principal investigator uses strain supplied by uniaxial pressure cells to tune and control unconventional and topological superconductors. Strain-tuned electronic properties are detected by angle-resolved photoemission spectroscopy. On the one hand, this research reveals fundamental interactions that drive unconventional superconductivity and on the other hand allows for quantum control of topological superconductors. The focus is on three materials that have been predicted or observed to be susceptible to strain tuning: topological iron-based superconductors, superconducting Weyl semimetals and strontium ruthenate.